US-Belarus Joint Workshop on Representation Varieties; Norman, Oklahoma; December, 1992

This U.S.-Belarus Joint Workshop, to be held by Dr. Andy R. Magid of the University of Oklahoma at Norman and Dr. Vladimir P. Platonov of the Belarus Academy of Science, will be on "Representation Varieties," in particular on the Platonov Conjecture. Four researchers from Belarus and four from the University of Oklahoma will participate in a 14 day workshop at the University of Oklahoma in late summer 1992 to identify joint scientific priorities and developing concrete proposals for future joint projects. Representation Varieties, or Character Varieties, are geometric objects whose points parameterize the isomorphism classes of complex matrix representations of a fixed size of a given finitely generated group. One basic question for these objects is to determine for which groups they are all finite sets. The Platonov Conjecture speculates that the only linear groups for which this happens are those of arithmetic type. By bringing together those researchers from Belarus (including Platonov) who have been most deeply involved in this study, and U.S. counterparts who have been deeply involved with related representation variety theory, the workshop should be able to effectively identify the most promising directions for future joint research in the area. This project in mathematics fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States and Eastern Europe to combine complementary talents and pool resources in areas of strong mutual interest and competence.